Analysis and Numerical Algorithms for Transport Equations and Related Problems

Nonlinear transport equations model a variety of physical phenomena
which often occur in real life. Examples of such phenomena are
fluid mechanics, meteorology, reactive flows, multi-component flows,
image processing, financial and biological modeling and others.
Computing the solutions to these equations remains an important and
challenging problem that requires development of fast, reliable and
accurate numerical methods. At the same time, understanding
the analytical properties of their solutions is not only useful
for developing fast solvers, but remains imperative for real world
applications.

On the analytic side, we propose to utilize techniques from approximation
theory and Harmonic Analysis to prove analytical results for nonlinear
equations and to use these techniques to develop numerical methods.
The techniques to be employed include Littlewood-Paley theory, wavelet
decompositions, maximal functions, interpolation and K-functionals.
Emphasis will be placed on the understanding the relation between micro-
and macroscopic models for transport, where a main vehicle in moving from
the micro to the macro level are averaging lemmas.
On the numerical side, the project aims to further develop the Godunov
type central schemes for multidimensional systems of conservation
laws and related problems. These schemes do not employ Riemann problem
solvers and characteristic decomposition. Their high resolution and
simplicity turns them into a universal tool for solving a wide range of
problems. The application of these schemes to multi-phase and multi-fluid
flow models, the Saint-Venant systems of shallow water equations,
multi-layer shallow water systems, shallow water equations on a rotating
sphere, granular material flows is another goal of the proposed
research, which requires further development of central schemes and
incorporation of various adaptive techniques into the central framework.